Development of Instrumentation for Measurement of Microscopic Dynamic Motions in Physical Systems

Abstract
Dynamic behavior of microelectromechanical systems (MEMS), microscopic weld-zone dynamics during
ultrasonic welding, sonic-infrared imaging for non-destructive evaluation of cracks, vibration-assisted
processing of nanocomposites and imaging of microscopic vibro-acoustic sources are all subjects of current
or proposed multidisciplinary research programs at Wayne State University (WSU), and all of these
research efforts would be significantly enhanced by adding the capability for precise measurement of
complex high frequency microscopic motions and the distribution of those motions over finite regions in
physical systems. Such measurement capabilities are not currently available at WSU, and this project
addresses that need by outlining a program for systematic acquisition and development of new instruments.
The acquisition and development activities are tightly integrated.
The micro scanning laser vibrometer has the capability to perform full modal analyses related to out-of-plane
motions in micron-sized regions, while the new 3-D Nano-imager will be developed to provide full 3-D
motion measurements of nanometer-sized regions. The proposed 3-D Nano-imager will be developed
using two methods, a new optical measuring method based on the inverse scattering phase retrieval, and
stroboscopic interferometer based three dimensional (3D) measurement technology. Both systems are
needed for the following reasons; (1) motion measurements generated by the newly developed 3-D Nano-Imager
system must be validated by comparison with independent measurements, and the micro scanning
laser vibrometer system would provide that validation capability, (2) the micro scanning laser vibrometer
system can measure out-of-plane motions of micron-sized systems, whereas the developed 3-D Nano-Imager
system will extend the measurement capabilities to full 3-D motions of nanometer-sized systems,
(3) the micro scanning laser vibrometer system would be available for our research immediately upon
purchase and installation, whereas it is anticipated that the development of the 3-D Nano-Imager system
will take at least one year, (4) both systems can be used to some degree in all of the research projects
described in this proposal.
The outcome of the research conducted with the requested instruments will add
significantly to the knowledge base in the areas of MEMS devices, sensors based testing, ultrasonic
welding, nondestructive testing of materials and structures, processing of nanocomposites, and imaging of
noise and vibration sources. Graduate and undergraduate students will be trained in state-of-the-art
techniques using state-of-the-art instruments. The results of the research will also be a source
of course projects for a large pool of local engineers, undergraduate and graduate students,
particularly from underrepresented groups.